Collaborative Research: Host Finding and Acceptance by a Specialized Insect Herbivore

Herbivorous insects use plant odors to find host plants. The mechanism by which they are able to track host odors to their source when wind and turbulence cause odor plumes coming from plants to meander and break up is not known. This dearth of information results in large part from the difficulty of describing and quantifying odor movement by capturing volatile compounds in the field. A field and laboratory study is proposed in which it will be determined whether chrysomelid beetles do not use apparently suitable clumps of host plants nearby because they are not findable or because quality (allelochemicals, nutrients) causes them to be rejected if the beetles do find them. This will be done by mapping the "odor landscape" to predict which plant clumps are findable or unfindable by colonizing beetles. Tracer volatiles and host-plant volatiles will be released and recaptured in the field using a cryogenic trapping technique. Laboratory choice tests and field experiments will be used to determine whether plant clones are acceptable to the beetles upon discovery. This research will contribute to the understanding of how insect pests select their food plants and has potential application in pest control.//